Automatic Strategy Generation for Computer Vision

This Research Initiation Award will support Dr. Chelberg's application of sensor modeling, Bayesian inference, utility theory, and real-time planning to problems of recognizing objects in range imagery. This approach to active computer vision is particularly appropriate for manufacturing, where object models can be derived automatically from design-database information. Possible applications include sensor selection (or design), part recognition, orientation determination, and bin picking.